Postdoctoral Research Fellowship in Plant Biology

9303728 Fath This is an individual award for the Postdoctoral Research Fellowship in Plant Biology. The applicant received his Ph.D. from Harvard University. His Ph.D. research was in the area of molecular biology using E. coli as the experimental system. He plans to carry out his postdoctoral fellowship research in the laboratory of Dr. Robert Haselkorn at University of Chicago. The proposed research entitled "The identification of genes controlling heterocyst differentiation in Anabaena" will broaden the training of the Fellow into plant biology in general and plant developmental biology and biological nitrogen fixation in particular. ***